Mechanisms of Parasite Survival: Trypanosoma musculi Kidney Forms

9423188 Dusanic Trypanosoma musculi is a protozoan parasite which resides in the bloodstream of the infected mouse. It lacks intracellular stages and provokes a protective immunity against reinfection after the parasites (trypanosomes) are cleared from the general circulation. Parasites can not be detected and there is no evidence of an active infection. However, trypanosomes persist in the capillaries (vasa recta) of the kidneys long after they can no longer be found in the peripheral blood and other tissues. This host-parasite relationship provides a model for studies of latent infections in immune hosts. This project is designed to describe the precise locations of the parasites in the vasa recta. It will describe their morphology and reproductive activities, their interactions under conditions in the vasa recta, and their biochemical and surface characteristics. The data obtained will indicate whether these kidney forms represent a unique stage in the trypanosome's life cycle and provide insights into the persistence of the parasites in the immune host during latent infections. ***